Mathematical Sciences: Mathematical Physics and Non- commutative Differential Geometry

The principal investigator will study applications cyclic homology and related algebraic constructions such as the deformation theory of algebras to quantum mechanics, microlocal analysis, index theory, and algebraic K-theory. This award will support research in the general area of differential geometry and global analysis. Differential geometry is the study of the relationship between the geometry of a space and analytic concepts defined on the space. Global analysis is the study of the overall geometric and topological properties of a space by piecing together local information. Applications of these areas of mathematics in other sciences include the structure of complicated molecules, liquid-gas boundaries, and the large scale structure of the universe.